Understanding Migration in the Circumpolar North (UMCN)

ABSTRACT
ARC 0639211

This research project, PI Terry Husky, is the US portion of a larger international collaboration that was conceived under the European Science Foundation, EUROCORES Programme, BOREAS. The full ESF project is a collaboration of researchers from 4 countries, including the US, Canada, Greenland and Sweden. This particular project, which represents the US NSF contribution to the BOREAS effort, focuses on of understanding migration as a major influence on the demographic structure of Arctic populations. This project represents a collaboration of economists and sociologists to provide quantitative information on determinants and consequences of migration across multiple regions in the Arctic. In addition, through its collaboration with other countries and researchers, the project will facilitate a synthesis of qualitative and quantitative research from a broad range of social science disciplines on the subject of migration. This international synthesis will provide a deeper description and understanding of the issue of migration and its effect on communities and regions, individuals and cultures, across the Arctic.